ARI: Environmental Engineering Program: Acquisition of Instruments for Trace Contaminants Analyses

CTS - 9601623 Arup L. Sengupta Lehigh University ABSTRACT The grant will allow the purchase of several instruments including atomic absorption spectrophotometer, capillary electrophoresis chromatograph, mercury porosimeter with surface analyzer, epiflourescene microscope and thermometric calorimeter. The on going research activities in environmental, geo-environmental and contaminant hydrology areas at Lehigh University will greatly benefit from the acquisition of the instruments. Specifically, these instruments will help accomplish the following two objectives: first, to characterize the key physical and chemical properties of a wide range of particulate matters including soils, natural and synthetic sorbents, metal precipitates, sludges and microorganisms; and second, to analyze trace concentrations of environmentally important chemicals, namely, heavy metals, organic solvents, dissolved cations and anions, pesticides and polycyclic aromatic hydrocarbons. Also, increased opportunities for inter-disciplinary research are likely to follow. ***